Acquisition of an X-Ray Diffraction System

This proposal is to acquire a state-of-the-art Siemens type X-Ray Diffraction System to be used to improve the capabilities and quality of 1) diffraction based materials research, particularly X-ray stress work, 2) diffraction and structure courses offered in the Materials Science Program, and 3) structural characterization for investigators doing other types of materials research.